Mathematics, Computer Science, Computational Science Scholarship Program

The Brockport Mathematics, Computer Science and Computational Science ( BMACS ) Scholarship Program consists of a comprehensive plan that includes high quality educational programs, and a strong plan to manage and administer the program using the talents of highly skilled faculty members assisted by industry- related Advisory Boards. The program has the full backing of a committed administration and the support of a strong student infrastructure that enhances existing campus programs ( such as the McNair and CSTEP programs) without supplanting them. This program aims to significantly increase the number of talented, but economically disadvantaged students in the three majors who can successfully complete a degree in a timely manner and go on to employment in their field or graduate school.